Research in Classical and Quantum Gravity

A broad based program of research in gravitational physics will be carried out. A major emphasis will be extending Einstein's general theory of relativity to include the principles of quantum mechanics. Among the outstanding questions that will be investigated are: What modifications of quantum mechanics are needed before it can be applied to the universe as a whole? What happens inside black holes and near the big bang - regions where general relativity is known to break down
due to infinite densities. What are the quantum properties of black holes and can they explain the fact that black holes seem to have a temperature and entropy?
Graduate students and postdoctoral researchers will be trained in the knowledge and techniques that are central to understanding and discovery in gravitational physics. Some talented undergraduates will also be encouraged to participate in current research. Questions such as the nature of space and time, the origin of the universe, and the nature of matter are of great interest to a wide audience. The results of current research will be disseminated to this broader audience through a range of forums from public lectures, to freshman seminars, to informing media reporters. Society at large will benefit by increasing their understanding of science and the world they live in.